An Infrastructure for Conceptualization and Visualization

9303189 Wise This award provides infrastructure for the support of Conceptualization and Visualization of Computation. The equipment supported includes high performance graphical workstations, a parallel computer, and high speed networking facilities. The faculty involved in the project are drawn from the department of Computer Science but have substantial collaborations with computational scientists and engineers at Indiana University. The research supported by this infrastructure includes automated theorem proving, circuit validation, parallel functional programming, scientific visualization, visualization of Monte Carlo methods, visualization of processor utilization on scalable architectures, visual programming, and visual performance monitoring and analysis.